Remediation and Curation of the University of California, Riverside Collection of Trichogramma (Hymenoptera: Trichogrammatidae)

9407027 Pinto Specimens of Trichogramma at the University of California at Riverside presently mounted in Hoyer's will be transferred to Canada balsam mounts. Limited materials now in alcohol or gelatin capsules will also be mounted in Canada balsam. That will make this highly valuable collection of parasitoids amenable to study.